Evalulation and Prediction of Damage Along Southern California Shoreline During Storm of 18 January 1988

Remote sensing and ground data from the largest storm in record and other storms for the Southern California Bight will be combined with the chronicle of coastline damages to better understand the processes involving hurricane-generated waves and shoreline areas separated from deep ocean by islands. Radar and satellite data will be used for the first time in the study of extreme wave-land interactions. This knowledge will help in developing better mitigation techniques and plans for coastline areas with off-shore islands.